A Scalable Communication Integrated Optical Network (SCION) for Bandwidth Greedy Multimedia Applications

This proposal introduced an original architectural approach for a scalable integrated optical network consisting of "LAN" segments with varying topologies interconnected by bridges. The investigators first investigate the two most promising topologies, rings and folded buses, interconnected directly by a bridge. Since in each case synchronization requirements and implementation issues vary, certain topologies may be preferred in different areas of the interconnected network. The investigators also propose to consider a network backbone that serves as an interconnect structure among dozens of subnetworks. In each subnetwork (rings or buses) packets are individually inserted into and extracted from the fiber medium, while in the backbone slot routing is used to exchange information between pairs of subnetworks. The bridge architecture is one of the main foci of this proposal which will be investigated covering all main options - a bridge without optical buffering, a bridge with optical buffering (SDL-bridge), and associated protocols for controlling the bridge operation and contention resolution, including the slot-override solution. The node architecture of bridged network nodes must take into account: the type of transceiver, the optical interface to the network, and the buffer organization at the transmitter. The transmitters and the receivers can be tunable or fixed, with at least one of the two devices being tunable to provide full connectivity among the nodes. These node architecture options will be investigated together with the new protocols to support different "sorting algorithms" needed to deal with bridge operation to avoid the creation of electronic bottlenecks. The slot routing related protocols and control are a key factor in the global network performance. In order to allocate slots between local and internetwork traffic a slot management protocol is necessary. Two possibilities will be evaluated: a fixed slot allocation protocol, which allocates slots in a preset order, determined by expected traffic and by network conditions, and a dynamic slot allocation protocol, which allocates slots according to the instantaneous offered load of each network segment. Analytical models and simulation tools will be extensively used to assess the performance of the different solutions.